Hypothalamic Neuropeptide Y: Modulation By Periperal Metabolic Status

Food intake, appetitie and body weight are controlled by the brain through an interaction with peripheral signals. This interaction is complex and poorly understood even though it is of obvious importance. Recently it has been discovered that a peptide in the brain, neuropeptide Y, induces feeding when injected into specific nuclei of the hypothalamus. The hypothesis of the proposal is that glucose raises insulin which acts in the hypothalamus to inhibit the peptide and when glucose levels are low, the reduced insulin triggers increased neuropeptide Y which stimulates feeding. The test of these hypotheses and the rate at which such changes occur can be measured most accurately by studying the regulation of mRNA expression in situ. This will show where and how much neuropeptide Y is formed and under what conditions.